The Biochemistry and Function of a Novel Control Element in the TCRa/d/Dad 1 Genomic Locus.

Ortiz-0002854

Using in vitro and in vivo biochemical techniques, we will investigate the molecular components of a novel transcriptional control element that suppresses position-effect-variegation in transgenic mice. This element functions in all tissues analyzed and is a sub-element of the locus control region of the T-cell receptor a/d gene locus.